The Construction of Elementary Mathematics Project (CEM)

The Construction of Elementary Mathematics Project (CEM) Penn State University will develop, implement, and evaluate a model program to prepare elementary mathematics teachers based on a constructivist view of learning. The program will consist of a coordinated, four-course sequance, three mathematics content courses and one course on mathematics learning and teaching. The mathematics courses will be based on the NCTM Standards (1989) and the instruction in these courses will provide the prospective elementary teachers with the constructivist model of teaching. The coordinated course sequence will make the connection between the development of subject matter knowledge and the development of pedagogical knowledge in mathematics. In addition, CEM will study the nature of prospective teachers' learning, development, and attitudes as they participate in the new program. A new instrument to assess the subject matter knowledge of elementary teachers in mathematics will be developed for the project. The research component of the project will evaluate and document the new model and contribute to the knowledge base for future teacher preparation efforts. Faculty from the mathematics department and from the mathematics education department will work jointly in developing the program. Consultants who are leaders in mathematics, mathematics education, and teacher education will advise the project. Classroom teachers will participate in planning courses and in providing classroom expertise to the preservice teachers during the methods course. The instructional model developed by the project and the research findings will be disseminated to the statewide network of Commonwealth campuses and teacher centers in Pennsylvania. The University's cost sharing will be 17% of NSF's contribution.